Femtosecond Optical Parametric Oscillators and UV Sources and Ultrafast Processes in Semiconductors

Femtosecond lasers and optical techniques have been used with great success to study a variety of ultrafast processes in optical materials. Most of these experiments are, however, performed with the Rhodamine 6G dye laser around 630 nm in the visible. There is a clear need to extend the femtosecond sources to the uv and to the ir and to achieve wide tunability. We have recently succeeded in demonstrating for the first time a cw uv femtosecond source at 315 nm and the first broadly tunable femtosecond optical parametric oscillator (OPO) in the deep red to near ir. The OPO is potentially continuously tunable from 720 nm to 4.5 uM. Although our initial experiments have demonstrated the spectacular potentials of these devices, much work remains to realize these potentials. A program of research to develop, characterize, and optimize femtosescond sources in the uv and broadly tunable optical parametric oscillators in the ir pumped by solid state laser sources is outlined. In addition, we propose to apply these unique sources to study the relaxation dynamics of nonequilibrium electrons and holes in GaAs and related compounds and quantum well structures.